Travel Grant: U.S. Participants to Attend the International Science, Technology, and Society Conference in Tokyo, Kyoto and Hiroshima, Japan, Spring 1998

This award provides travel support to allow members of the History of Science Society, the Philosophy of Science Society, the Society for the History of Technology, and the Society for Social Studies of Science to attend an international Science and Technology Studies conference in Japan. The conference will be held in Tokyo, Kyoto, and Hiroshima from March 16 through March 22, 1998. The purpose of the award is to provide travel assistance, particularly to more junior scholars, allowing them to attend this important meeting (which will be the first of its kind in Japan).